Symposium on the United States Contributions to Machining and Grinding Research in the Twentieth Century; Stillwater, Oklahoma; November 1991

Support is requested so that the key contributors to research in machining and grinding in the 20th century be brought together for a 2-day symposium at Oklahoma State University. The symposium will allow currently active researchers to benefit from the knowledge and experience of the pioneers, before they are no longer available to us.